Mathematical Sciences: Applications of Matroid Theory

This award supports the research in the theory of matroids of Professor Klaus Truemper of the University of Texas at Dallas. Dr. Truemper's project is to develop new methods of matroid decomposition, and also to apply the body of matroid theory to the task of producing an algorithmic problem solver or program generator that will, in most cases, produce highly efficient solutions to particular problems in a given NP-hard class. This research falls in the broad category of combinatorics, which is one of the most active fields in today's mathematics. Fundamentally, combinatorics represents a systematization of the very first of all mathematical activities, counting. In its modern development, however, combinatorics has gone beyond just counting to make use of a wide variety of advanced mathematical techniques, and although its roots go back several centuries, the field has had an explosive development in the past few decades because of its importance in communications and information technology.